Mathematical Sciences: Research in Algebraic Geometry and Related Topics

Professor Youssin will investigate singularities of complex algebraic varieties. He will study the relationship between decompositions of the L-2 cohomology that come from intersection cohomology and those that come from modules over rings of differential operators. He also intends to study relations between Newton polyhedra and resolution of singularities. This is research in the field of algebraic geometry. Algebraic geometry is one of the oldest parts of modern mathematics, but one which has had a revolutionary flowering in the past quarter- century. In its origin, it treated figures that could be defined in the plane by the simplest equations, namely polynomials. Nowadays the field makes use of methods not only from algebra, but from analysis and topology, and conversely is finding application in those fields as well as in physics, theoretical computer science, and robotics.